Kid Science

9815057
KAMIEN

The Franklin Institute proposes to develop Kid Science, a 4,000 square foot, bi-level, core exhibit space for parents and children ages 5-8 years old. Kid Science will accomplish two parallel goals: First, it will provide parents information and insight about K-4 National Science Education Standards, theories of learning and development, and suggestions for interaction with children. For children, the exhibit will be an introduction to basic science learning principles as defined by the national science standards for children ages 5-8, and encourage collaborative learning to foster beneficial parent/child interactions.

The development of the Kid Science exhibit will serve as a model to build upon research for establishing effective methods for communicating directly to parents and caregivers through exhibit activities. These activities will be specifically designed to reach elementary age school children and their parents.

The cost share for this project is 33% of the total project cost.